Mathematical Sciences: Classical and Quantum Lattice Systems with Continuous Groups of Symmetry

Professor Balaban will conduct research on low temperature classical and quantum spin systems with continuous symmetry groups, in particular on the classical and quantum Heisenberg models and the Hubbard model. For these models he will construct a low temperature expansion using the renormalization group approach. He will use this expansion to prove basic facts about the models such as the existence of a continuum of pure phases with spontaneous magnetization and power law decay of correlations. The models which Professor Balaban will investigate are mathematical models of magnetic materials. The ultimate goal is to provide the basic understanding of magnetism in materials which is lacking at the present time. The method is to tackle models which are closer and closer to reality.